Lasers for a Program in Laser Technology

Pacific Union College will provide students in the Laser Technology program experience with state-of-the-art laser instrumentation and techniques. The project provides carbon dioxide and Nd:YAG lasers and associated measurement instruments including power meters, spectrum and signal analyzers, and a fast oscilloscope. The instrumentation will be incorporated into the laser laboratory activities and will expand and enhance the instructional and laboratory experience essential for students in a new program in laser physics. The equipment will help prepare students for a wide range of pursuits in the fields of lasers and electro-optics.